Symposium on Opportunities for Women in Polymer Science: Theory, Experiment and Technology; August 21-26, 1994; Washington, DC

9419080 The American Chemical Society (ACS) Division of Polymeric Materials: Science and Engineering is sponsoring a symposium at the Washington, D.C. Meeting, August 21-26, 1994, entitled "Opportunities for Women in Polymer Science: Theory, Experiment and Technology". The Women Chemists Commitee of the ACS is a cosponser. This Symposium will be pedagogical, and is intended to highlight the contributions of women in materials science, with special emphasis on polymer science and engineering so as to present positive reinforcement to women who are interested in, or just starting careers in polymers. %%% ***